Acquisition of Hardware and Software for a Microscopy and Image Analysis Facility

9305349 Brandon This award provides one-half the funds needed to acquire a research optical microscope and a cathodoluminescence (CL) system to be used in the Department of Geology and Geophysics at Yale University. Yale University is committed to providing the remaining funds needed for the acquisition. The optical microscope and the CL system will be used primarily in geological research projects where mineral textures and compositions need to be studied in reflected, transmitted, and induced fluorescent light. ***